Nonlinear Wave Interactions

The work supported under this grant will address problems in
Nonlinear Wave Dynamics, which will be studied using a combination
of analytic and numerical methods. For example:
(I) Nonlinear interactions of large scale atmospheric waves
in the Equator, which play a fundamental role in the global weather.
A new mechanism for nonlinear interactions of the waves via
topography and convected properties (e.g.: potential vorticity,
temperature and humidity) will be investigated.
(II) Interaction of nonlinear hyperbolic waves with media nonuniformities.
These waves distort as they propagate, leading to the formation of shocks,
which are strongly dissipative. Past research shows that nonuniformities
or interactions with other waves can stop this process. For example,
a large class of new solutions to the Euler equations of Gas Dynamics
was found and will be studied. These solutions are attracting for the
time evolution and can achieve large pressure variations without
breaking and forming shocks. Their existence gives rise to
interesting mathematical issues. A better understanding of this phenomenon
could provide means to control (or at least diminish) the influence
of shocks in some gas flows.
(III) Focusing, reflection and refraction of weak shocks.
Strong acoustical waves and weak shocks are ubiquitous. A better
understanding of their behavior has considerable scientific
significance and will shed light into many important practical problems.
Many puzzling problems remain in this area. For example, in many
situations experiments show three weak shock waves joining at a
point in a nearly flat configuration, but theoretical calculations
indicate that this is not possible, leading to a contradiction
with the experiments. A second related problem occurs with the
prediction of infinities in the amplitudes of weak shock waves
as they undergo focusing, reflection or refraction under
appropriate conditions.

Waves occur in many fields --- such as Acoustics, Atmosphere
and Ocean science, Gas Dynamics, Optics, Combustion Theory, etc. ---
where they fundamentally affect the dynamics. Many advances have
been made in the last few decades, but many open questions remain,
both concerning the applications and the mathematics that is used.
This award will support research on mathematical models for wave-like
phenomena in the global weather, processes in gas dynamics that
avoid the formation of shock waves, and the mathematical modeling of
complex shock wave interaction.